Fundamentals of Fouling and Flux Decline in Crossflow Membrane Filtration

This study involves the use of microsporous membranes for the separation of whole and broken cells from proteins and other soluble molecules present in fermentation broths and cell homogenates. Its primary objectives are to provide a predictive understanding of cake and membrane fouling, which lead to a reduced efficiency of the separations process, and to use this understanding to develop novel strategies to overcome the detrimental effect of fouling. A new theory, which includes the mechanism of shear-induced hydrodynamic diffusion, is used to describe the reductions in permeate flux and protein transmission due to simultaneous cake buildup on the membrane surface and adsorption fouling within the membrane structure. When the equations of motion are integrated across the cake layer and the concentration- polarization boundary layer, this theory takes the form of an integral model and is solved using the method of characteristics. In addition to describing the transient and steady-state behavior of crossflow microfiltration separation processes, the theory predicts desired operating conditions under which little or no cake layer of rejected cells is expected to form on the membrane surface. Complementary experimental research has tow primary thrusts. The first is the development of protocols to measure physical parameters required in the theory. These parameters include the membrane and cake permeabilities and selectivities, and a crossflow integral which involves the concentration dependence of the diffusivity and viscosity of the suspension being filtered. The second thrust involves testing and improving the theory by measuring permeate flux, protein transmission, cake buildup, and membrane fouling. Experiments are performed with rotary and conventional crossflow microfilters containing polymeric and ceramic membranes, and using model suspensions for latex beads and complex suspensions of bacterial and yeast fermentation broths and cells homogenates. The results of this research are helping to advance the application of membranes for separations in environmental, chemical, energy, microelectronics food, beverage, and pharmaceutical industries. Applications to the production of pharmaceuticals are especially significant, as the knowledge gained may be used to design membrane separations systems which yield high recoveries of valuable protein products.